Equipment for Triple Differential Neutron Cross Section Measurements (Physics)

This equipment will be used to carry out an approved experiment to probe the nuclear equation of state (EOS) by measuring triple-differential cross sections for neutrons from high-multiplicity collisions of equal-mass nuclei as a function of mass number and bombarding energy. Calculations indicate that this experiment can probe the EOS with good sensitivity, and measurement of collective flow of neutrons will provide information complementary to Plastic Ball and Streamer Chamber measurements of charged particles. The wide dynamic range of neutron energies from about 20 MeV to nearly three times the kinetic energy per nucleon of the projectile, is in marked contrast to the Plastic Ball measurements with energies from about 40 to 200 MeV/nucleon. The ability to detect neutrons over this wide dynamic range of energies (and in many detectors simultaneously) compensates for the reduced neutron detection efficiency.